Studies of the Magnetic Properties of Thin Films, Heterostructures and Superlattices Containing Iron

9410148 Walker In recent years the Principal Investigators have been making nano- scale magnetic thin-films, superlattices, and heterostructures by Molecular Beam Epitaxy. Not only do they produce new magnetic materials by these techniques, but they also study fundamental aspects of magnetism. The group detect weak interlayer magnetic coupling between thin (110) Iron layers through intervening layers of (111) Silver and (111) Copper. These studies are important for understanding the mechanisms of giant magnetoresistance in these multilayer systems. This phenomenon is beginning to be exploited for magnetic read-write heads for high density magnetic disk memories. % % % % This research involves making new magnetic materials by careful engineering at the atomic level. Normal magnetic materials such as iron are alternated with both non-magnetic materials such as gold, copper, silver and with other magnetic materials to make repeated atomic-scale multilayer system whose magnetic properties can be tailored to particular applications by controlling the relative thickness of the various layers. This area of research is being vigorously pursued in a number of countries because of its potential technological importance. Already these materials are coming into use by International Business Machines (IBM) to make magnetic recording heads for very high density computer disks. ***